Kent State Informal Analysis Seminar

This award provides two years of funding to help defray the expenses of participants in the "Kent State Informal Analysis Seminar," the next meeting of which will take place March 1-2, 2014, on the campus of Kent State University.

The Kent State Informal Analysis Seminar is a roughly biannual regional conference that has served the US Midwest for over forty years. The themes of the meetings vary greatly from event to event, ranging over a broad spectrum of topics that has included approximation theory, convex geometry, dynamical systems, the geometry of Banach spaces, harmonic analysis, partial differential equations, and several complex variables, to give just a sampling. The featured speakers at the March 2014 meeting will be Svetlana Jitomirskaya (mathematical physics) and Nets Katz (harmonic analysis and combinatorics), each of whom will deliver a four-hour series of lectures. The seminar format provides ample opportunity for graduate students, postdocs, and other young scientists to present their work.